Unified Object and Image Representation in 3D Frequency Domain

Abstract

IIS-9876904
Ben-Arie, Jezekiel
University of Illinois
$76,672 - 12 mos.

Unified Object and Image Representation in 3D Frequency Domain

The proposed research is to develop a frequency domain object representation and related methodology for several major vision problems. Specifically, a volumetric frequency domain object representation (VFR) introduced by the PI will be used, which encapsulates both viewer centered and object centered representations. The VFR includes a continuum of the views of the objects as 2-D slices of the original representation. This view representation is based on the Fourier Slice Theorem. Previous frequency domain representations were developed for two dimensional images and did not consider the three dimensional object structure. Conventional 2-D frequency domain or spatial domain image representations for vision tasks is limited to 2-D interpretation. On the other hand, the proposed approach considers the full three dimensional object structure and therefore can handle diverse problems such as viewpoint or
illumination independent recognition, articulated 3-D motion, etc. The VFR includes not only a continuum of object appearances but also 3-D structural information. Thus, 3-D object structure can be derived from single images. Pose invariant and illumination invariant object recognition can be implemented using the VFR by directly indexing into a complex (real and imaginary) volumetric eigenvector space. Two approaches are proposed for motion estimation. The result would be either a temporal sequence of 3-D poses which explicitly define the motion or a 3-D motion flow field. This 3-D approach avoids the problems of 2-D flow fields, especially in the estimation of 3-D rotational motions where the actual motion vectors exhibit themselves as projections onto the image plane. It is also planned to extend the VFR model towards several vision applications, such as image segmentation based on 3-D structure, pose invariant and illumination invariant object and face recognition, 3-D surface recovery from single image and articulated motion recognition.